Robust Multivariate Analysis and Outlier Identification in
Massive Data Sets

Rocke
9870172

This research involves new and improved methods for robust estimation of multivariate location and shape and identification of outliers. Massive data sets, especially in high dimension, form a particular target of the research. The research focuses on theoretical, methodological, and computational questions in robust multivariate analysis, and also extends the investigators previous work into cluster analysis.

Identification of outliers and clusters of data in high dimension and in massive data sets is an important and difficult problem. These data sets occur in satellite imagery, in the human genome project, in x-ray astronomy, in geophysics, and in many other areas of science. They range in size from multiple gigabytes to terabytes, and present significant challenges for analysis. This project is aimed at methods for uncovering previously unknown structure in these data sets. The computationally intensive nature of the methods relates this research directly to the High Performance Computing and Communication Federal Strategic Area, and the applications to environmental science data relates it to the Environment and Global Change area. The project is supported by and associated with the National Partnership for Advanced Computational Infrastructure.